Management of the Science and Engineering Labor Force Model and Data Base

The contractor will maintain and enhance the computer model used to generate national estimates of the characteristics of scientists and engineers. The contractor will also provide for data base management services in support of NSF and other personnel surveys as well as develop customized table generation procedures for use on personal computers. The Foundation is responsible for developing and maintaining a data base of demographic, educational, and employment information on scientists and engineers. This data base, the Scientific and Technical Personnel Data System, includes three surveys: the National Survey of Natural and Social Scientists and Engineers, the Survey of Natural and Social Science and Engineering Graduates, and the Survey of Doctorate Recipients. Results of the National Survey of Natural and Social Scientists and Engineers and the Survey of Natural and Social Science and Engineering Graduates are combined to produce national estimates of the science and engineering population in the United States.